Integration of a Fourier Transform Infrared Spectrometer into the Chemistry Undergraduate Curriculum

A Fourier Transform Infrared Spectrometer is being used by the Chemistsry Department at the University of Puget Sound to demonstrate state-of-the-art analytical techniques in six upper division courses: Physical Chemistry Laboratory, Spectroscopic Identification of Compounds, Inorganic Chemistry, Instrumental Analysis, Group Theory and Molecular Spectroscopy, and Forensic Chemistry. The inherent sensitivity, reliability, expanded wavelength capability and flexibility of this instrument affords students an expanded range of undergraduate educational experiences.